High Energy Physics Research

9308074 Mo This award covers experimental Elementary Particle Physics Research by a group at the Virginia Polytechnic Institute in collaboration with other NSF, DOE and foreign supported scientists. The group will continue their studies of inelastic electron scattering at the DESY accelerator in Hamburg, Germany. They will also continue development and testing of new phototube high voltage designs and other electronics for use at the Superconducting Super Collider in Texas. ***